International Conference on Advances in Interdisciplinary Statistics and Combinatorics

The proposed project is a statistics conference "International Conference on Advances in Interdisciplinary Statistics and Combinatorics (AISC 2012)". The plan is to hold the conference on the campus of The University of North Carolina at Greensboro, Greensboro, NC during October 5-7, 2012. The main objective of the conference is to promote interdisciplinary research involving statistical techniques. These techniques are becoming increasingly important in all fields of scientific discovery. A unique feature of the proposed conference is to bring together nationally recognized researchers from many fields such as anthropology, biology, economics, education, environmental science, information systems, insurance, mathematics, medicine, psychology, and public health. The common thread is the statistical methods used in their respective research programs. The statisticians benefit by getting exposed to real problems from other disciplines and researchers from other disciplines benefit by learning more about various statistical techniques. The PI and both Co-PIs are currently involved in several collaborative research grants and have experienced firsthand the significance of interdisciplinary research.

An important objective of the conference is to groom young researchers by providing them an opportunity to interact with established researchers in their respective fields. These young researchers include undergraduate researchers, graduate student researchers and new PhDs specializing in statistical sciences. They are given the opportunity to make oral presentations as opposed to poster presentations. The investigators are specifically trying to attract women and minority candidates by giving them higher priority in awarding financial support. The organizers plan to contact appropriate departments at North Carolina Agricultural and Technical State University in Greensboro, Winston-Salem State University in Winston-Salem, and North Carolina Central University in Durham, all historically black universities. They also plan to place conference announcement on the web pages of the Committee on Women in Statistics and the Committee on Minorities in Statistics (both committees of the American Statistical Association).The organizers also plan to make special efforts to accommodate the needs of the participants with disabilities. More details about the conference are available at the website http://www.uncg.edu/mat/aisc/